Presidential Young Investigator Award

Dr. Wie has been selected as a Presidential Young Investigator. He is active in fundamental research on materials science of III-V compound semiconductors. In the research program for he National Science Foundation he will pursue studies to include the growth of III-V heterojunction materials, million electron volt ion beam processing of semiconductors, and thin film oxide superconducting materials. Techniques utilized in the research include Raman spectroscopy, phonon frequency shift techniques, electrical characterization, x-ray diffraction, Hall spectroscopy, deep level trap spectroscopy, and organometallic vapor deposition. The research in this grant will have impact on the processing and characterization of semiconducting and superconducting materials technology. The interactions with industry which are inherent with Presidential Young Investigator grants will have implications for national competitiveness in the electronics field.